Foundations of Data Science Institute

The Foundations of Data Science Institute (FODSI) brings together an interdisciplinary team of researchers and educators from UC Berkeley, MIT, Boston University, Bryn Mawr College, Harvard University, Howard University, and Northeastern University, with the aim of advancing the theoretical foundations for the field of data science. Data science has emerged as a central science for the 21st century, a widespread approach to science and technology that exploits the explosion in the availability of data to allow empirical investigations at unprecedented scale and scope. It now plays a central role across all of science, commerce and industry. The development of theoretical foundations for principled approaches to data science is particularly challenging because it requires progress across the full breadth of scientific issues that arise in the rich and complex processes by which data can be used to make decisions. These issues include the specification of the goals of data analysis, the development of models that aim to capture the way in which data may have arisen, the crafting of algorithms that are responsive to the models and goals, an understanding of the impact of misspecifications of these models and goals, an understanding of the effects of interactions, interventions and feedback mechanisms that affect the data and the interpretation of the results, concern about the uncertainty of these results, an understanding of the impact of other decision-makers with competing goals, and concern about the economic, social, and ethical implications of automated data analysis and decision-making. To address these challenges, FODSI brings together experts from many cognate academic disciplines, including computer science, statistics, mathematics, electrical engineering, and economics. Institute research outcomes have strong potential to directly impact the many application domains for data science in industry, commerce, science and society, facilitated by mechanisms that directly involve a stream of institute-trained personnel in industrial partners' projects, and by public activities designed to nurture substantive interactions between foundational and use-inspired research communities in data science. The institute also aims to educate and mentor future leaders in data science, through the further development of a pioneering undergraduate program in data science, and by training graduate students and postdocs with an innovative approach that emphasizes strong mentorship, flexibility, and breadth of collaboration opportunities. In addition, the institute plans to host an annual summer school that will deliver core curriculum and a taste of foundational research to advanced undergraduates, graduate students, and postdocs. It aims to broaden participation in the data science workforce, bringing the excitement of data science to students at the high school level, and broad participation in the institute's public activities. And it will act as a nexus for research and education in the foundations of data science, by convening public events, such as summer schools and research workshops and other collaborative research opportunities, and by providing models for education, human resource development, and broadening participation.

The scientific focus of the institute will encompass the full range of issues that arise in data science -- modeling issues, inferential issues, computational issues, and societal issues – and the challenges that emerge from the conflicts between their competing requirements. Its research agenda is organized around eight themes. Three of these themes focus on key challenges arising from the rich variety of interactions between a decision maker and its environment, not only the classical view of data that is processed in a batch or a stream, but also sequential interactions with feedback (the control perspective), experimental interactions designed to answer "what if" questions (the causality perspective), and strategic interactions involving other actors with conflicting goals (the economic perspective). The other research themes focus on opportunities for major impacts across disciplinary boundaries: on elucidating the algorithmic landscape of statistical problems, and in particular the computational complexity of statistical estimation problems, on sketching, sampling, and sub-linear time algorithms designed to address issues of scalability in data science problems; on exploiting statistical methodology in the service of algorithms; and on using breakthroughs in applied mathematics to address computational and inferential challenges. Intellectual contributions to societal issues in data science will feature throughout this set of themes. The institute will exploit strong connections with its scientific and industrial partners to ensure that these research directions enjoy a rich engagement with a broad range of commercial, technological and scientific application domains. Its sequence of research workshops and a collaborative research program will serve the broader research community by nurturing additional research in these key challenge areas. The institute will be led by a steering committee that will seek the help of an external advisory board to prioritize its research themes and activities throughout its lifetime. Its educational programs will include curriculum development from K-12 through undergraduate, a graduate level visit program, and a postdoc training model, aimed at empowering the next generation of leaders to fluidly work across conventional disciplinary boundaries while being mindful of the full set of scientific issues.